Neural Stimulus Representations and Computational Learning Models

BARTO Learning in animals involves complex brain processes that integrate sensory information into a coordinated set of actions: It is something that animals do very well, but man-made thinking machines (computers) do rather poorly by comparison. In order to improve computer performance, many scientists and engineers have turned to the brain for theoretical insights into the processes of learning. These insights, when applied to computer technology, have become increasingly important in applications ranging from industrial robotics to process control. Studies of animal behavior, dating from the early years of this century, have provided a rich scientific literature for evaluating theories of learning. These are normally expressed in terms of mathematical relationships between environmental events (stimuli) and actions (responses). State-of-the-art learning theories are known as "real-time computational learning models" because they can readily be translated into computer programs for application to technology. Drs. Moore and Barto are using a well-characterized associative learning paradigm (that is, learning that one event preceeds another event), classical conditioning of the nictitating membrane response in the intact rabbit. This preparation serves them as a laboratory benchmark for evaluating their recently proposed mathematical learning model, and holds much promise both for clafifying brain processes underlying learning, and for enhancing and advancing computer technology. The ultimate goal of this research is to discover how information is processed so efficiently by the brain. These investigators will incorporate this knowledge into a mathematical model, in a way that best describes the relationship between a specific behavior and the brain mechanisms underlying that behavior. This new information can then be applied directly to information acquisition by the latest generation of computer systems.